Control and estimation in distributed actuator/sensor arrays with application to micro-systems

Large arrays of spatially distributed dynamical systems are becoming increasingly prevalent in modern
technological applications.These systems can range from the macroscopic,such as vehicular platoons or
Unmaned Aerial Vehicles (UAVs)in formation .ight to the microscopic such as micro-mirror or micro-
cantilever arrays.A signi .cant impetus for research on these systems has come from the .eld of Micro-
Electro-Mechanical Systems (MEMS)where the construction of very large arrays of sensors and actuators is
now feasible and economical.It is widely recognized that one of the next frontiers in this area is the systems
leve design of such MEMS,as well as their integrated distributed feedback control and estimation.
From the systems point of view,these large actuator/sensor arrays are coupled dynamical systems with
a large number of inputs and outputs.Traditional control and estimation techniques are not immediately
applicable to these systems for two main reasons:(a)the computational complexity due to the large scale is
daunting,and (b)a crucial design consideration is the distributed nature of control and estimation,i.e.which
sensors should communicate with which actuators,and the localization and decentralization requirements on
the controllers.The second problem,in its general form,is widely recognized to be a very di .cult one,with
about three decades of related research in the area of decentralized control.It is thus likely that progress will
only come from exploiting special structures inherent to certain spatially distributed control and estimation
problems.Recent work by the PI has elucidated e .ective methods for addressing both of the above issues for
spatially distributed systems with certain types of invariances and symmetries.The methods also provide
guidelines and benchmarks for systems that may not posses those symmetries as well.
We propose to carry out a combined theoretical and experimental research program in the modelling,
distributed controller design and estimation for large networks of sensors and actuators under a variety of
relevant design constraints.These ideas and design techniques will be applied to the multi-micro-cantilever
systems we have been testing at UCSB.
The intellectual merits of the proposed research are twofold.The .rst is the development of systematic
design methodologies for distributed robust control systems which have architectural constraints.These con-
straints include the ocalization of information passing between sensors and control units.Such architectural
constraints are a compromise between fully centralized and fully decentralized control,and are thus expected
to be tractable.Another important aspect of the proposed research is the synergy between MEMS problems
and control theory.Integrated systems design is becoming an increasingly important issue in MEMS.Our
work in particular will contribute to this in two ways.The .rst is in using distributed estimation as a method
for simplifying sensor design in a MEMS array,and the second is in the use of feedback (electronically)to
simplify the mechanical MEMS design.
Broader impacts:This project is based on a synergistic interaction between control theory and MEMS.
Ideas from control engineering are used to design radically simpler MEMS systems,and architectural issues
in MEMS systems are posing new control problems.Students involved in this research will have inter-
disciplinary training in both dynamics and controls and in MEMS.We anticipate that our results will
enable the design of e .cient MEMS systems which are expected to become an important component of the
technological economy.